Presidential Young Investigator Award: Assembly - Level Computer Aided Design

The goals of the assembly-level computer aided design project are : (1) to provide an interactive design environment that supports conceptual design as well as shape description and, (2) generate design models that more effectively support automated design optimization and production planning tools. A functional computer aided design system in an actual design environment should be the result of this research.